Global Perceptions of Environmental Problems: Analysis of Results from a 24-Nation Survey

9321901 Dunlap This is a study of global perceptions of environmental problems. Results from a 1992 international survey of representative samples of adults in 24 economically and geographically diverse nations will be analyzed in detail. Three broad types of investigation will be conducted: 1) Various analyses of individual-level survey data will be conducted to test models of the nature and sources of environmental concern within nations, as well as across nations; 2) Results from the foregoing analyses will be used to create aggregate-level measures of public perceptions for each nation, and these will be combined with existing data on the economic, social, political and environmental characteristics of these same nations to allow aggregate-level model testing at the national and regional levels; 3) Potential links between national-level characteristics and individual-level perceptions will be investigated using a variety of contextual analysis techniques. In all of these analyses, special attention will be paid to how perceptions of global change are interrelated with perceptions of a wide range of environmental phenomena. %%% In addition to providing unprecedented information on public perceptions related to global environmental change that will be of value to research and policy-making communities, this study offers an opportunity to test general theories and extend existing social science research on the nature and sources of environmental awareness and concern. ***